Wireless Direct Connect

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect three schools in two Texas school districts to the Internet using wireless techniques.